Lehigh University High Performance Networking for Research and Education

This award is made under the high performance connections portion of ANIR's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for two years for a DS-3 connection to the vBNS. Applications include projects in remote instrumentation for advanced electron microscopy, computational and fluid dynamics and manufacturing processes, and simulation of plasma behavior in nuclear fusion containment devices. Collaborating institutions include Pennsylvania State, Drexel, University of Pennsylvania, Northwestern, Oak Ridge National Lab, Lawrence Berkeley Lab, Sandia and NIST.